Astrophysical Probes of Beyond Standard Model Physics

This award funds the research activities of Professor Manoj Kaplinghat at the University of California, Irvine.

Over the next few years, astrophysical observations will play a pivotal role in the effort to detect dark matter through non-gravitational means. The focus in this project will be on two promising ways forward. One will be to use observations of gamma-rays towards the luminous satellites of the Milky Way in order to constrain or detect weak-scale thermal dark matter. Weak-scale thermal dark matter is the most widely studied dark-matter candidate and is motivated by particle-physics models at the high (electroweak-scale) energies currently being probed at the Large Hadron Collider. The other way forward will be to develop simplified models to describe dark-matter halo density profiles in the presence of significant self-interactions and compare to observations. As part of the project, the PI will provide a map between these preferred models and the underlying particle-physics models in which such phenomenology is realized.

This project is also envisioned to have significant broader impacts. The PI will develop a cosmology and particle-physics cluster for the California State Summer School for Mathematics and Science (i.e., the "COSMOS Program" at UC Irvine). COSMOS is a program for motivated high-school students and currently has a cluster in astronomy at UC Irvine but none in particle physics. Based on input from faculty teaching the astronomy cluster, it is envisioned that a particle physics and cosmology module will be highly subscribed.